On the Political Economy of Income Taxation

This project examines two important aspects of the theory of income taxation that are likely to have empirical or policy implications: voting over income taxes and equity in optimal income taxes. First, the project develops a model of income taxation in which a finite samples of consumers is drawn from a continuum population that differs in abilities. Work disincentives are present as are adverse selection and moral hazard problems. Income taxes can be non-linear. The project explores existence, uniqueness and characterizations of the majority rule equilibrium, as well as multi-stage voting games in this framework. Comparative statics are also studied. Second, the project examines optimal income taxes when a publicly available equity index of post-tax income enters each of a continuum of consumers' utility function. The first order necessary conditions and the shape of the optimal schedules are examined and compared with those resulting from the standard model of income taxation. The theory of taxation is an important area of study in economics. There is a large normative literature on tax policy prescriptions. Most of this research abstracts from political considerations. Past work also is either restricted to considerations of only linear taxes, or does not consider problems due to information such as adverse selection and moral hazard. The contribution of this project comes from developing a theory with both political and economic content. The new theory is not restricted to linear taxes, explicitly treats imperfect information and incorporates political theory into models of optimal income taxes. This is important because it permits the derivation of testable hypotheses and eventually the use of this theory to explain the types of income taxes adopted by voters in the real political world.